Improvement of Undergraduate Acoustics Laboratory Instruction

The University of Northern Iowa will purchase a dual-channel, real-time spectrum analyzer, x-y recorder, calibrated sound power source, and an integrating sound level meter. This equipment will be used to improve instruction in acoustics courses both for physics majors and non- majors. The spectrum analyzer will be used to examine phase differences between different parts of sound systems, and to look at the dynamic structure of sound spectra. The calibrated sound power source will permit several new experiments to be added to the courses, and the sound level meter will be used to analyze noise sources. Advanced undergraduates also will be able to use the new equipment in research projects. The University of Northern Iowa will match the NSF grant with an equal amount of funds.